Eolian Compound Crescentic Dune (Draa) Dynamics

Deposits of compound-complex bedforms form a significant portion of the eolian rock record, yet the actual dynamics of their airflow and bedform behavior have not been addressed. This obviously handicaps our ability to understand these modern bedforms and to interpret their deposit. Work here constitutes the first detailed study of these features. The results of this proposed work will be a four-year study consisting of monitoring bedform processes and migration, plus a documentation of surface airflow and of the structure of macro-turbulence of the lee-face airflow. This research represents a continuation of studies already completed, in progress, and proposed here. Surface processes and bedform migration will be mapped from the air on the ground. Anemometers and microvanes will be used to document surface airflow. Balloons and a tower with mounted instruments will be used to study the overall secondary lee- slope airflow. The significance of this study will be the first documentation of the relationship of primary and secondary airflow on a large complex bedform and the resulting bedform response. The study site includes the Algodones Dune Field bordering S. California and Nevada. Applications of the research include dune migration, erosion/deposition in farmland, shoreline dune processes, and interpretation of paleoeolian features and wind regimes.